Workshop: Rapid Environmental Change and Arctic Security

Participants in this workshop seek to advance understanding of emergent security challenges in the Arctic, evaluating the multiplier effects of accelerated climate change on environmental, economic, and social systems. They explore to what extent conventional security assumptions are appropriate for understanding the dynamic Arctic strategic landscape and address issues such as threats to infrastructure, international hazard response, and public health.

The workshop is structured to foster discussion and debate, stimulate new research agendas, and provide opportunities for attendees, including graduate and undergraduate students, to become more familiar with pressing Arctic issues. Five graduate students and ten undergraduate students selected through a competitive process will have the opportunity to participate, with emphasis on recruiting from a diverse applicant pool. Other activities include a student essay contest and outreach to local middle and high school students through the University of Southern California’s Center for Active Learning in International Studies (CALIS).